Support US-based Students to Attend the BioImage Informatics Conference 2017 (BII 2017)

The BioImage Informatics (BII) conference is among the foremost meetings on image informatics for life sciences. It aims to establish a unique communication network for researchers working in the fields of image processing, computer vision, and image-based analytics, for applications in biology. Since the first conference in 2005, it has been attracting computer scientists and biologists from all over the world. The BII 2017 will be held in Banff, Canada from September 19th to September 21st, 2017. The conference will include invited talks by leading scientists, oral and poster presentations selected from peer-reviewed submissions, technical special sessions, as well as competitions and challenges. This award will fund a diverse set of graduate student participation in this important meeting.